DISSERTATION RESEARCH: Evaluating the Effect of Plant C and O2 inputs on Structuring Rhizosphere Microbial Communities in Anaerobic Sediments

This research will investigate how marsh plant communities with different dominant species might function to structure microbial communities in marsh sediments, thereby altering biogeochemical patterns, CO2 uptake (or release) and processing of atmospheric N inputs resulting from human activities. The role of estuarine marshes, such as those studied here, in regulating C and N cycles is of global importance. Moreover, determining whether marshes dominated by different plant species (Spartina alterniflora and Phragmites australis) process CO2 and N inputs differently via their effects on sediment microbial communities addresses an important scientific question. t mechanisms, root porosity, and in sediment microbial community composition and functional ability. This study represents a novel approach to improving understanding of wetland plant-microbe interactions. It could contribute information useful designing coastal wetland restoration projects and management efforts.